Intercellular Connections and the Ordinal Systematics of theRed Algae

Unique structures called pit plugs are associated with intercellular connections in the red algae. Variation in the structure of pit plugs (layering, shape, and chemistry) among species of red algae provides valuable characters that have contributed to improved classification of these plants. In this project, Dr. Curt Pueschel of the State University of New York at Binghamton will examine components of the pit plug, especially the outer cap layers, using histochemical tests in conjunction with electron-microscopy to resolve features of cap construction. Morphological variation of the pit plug within the order Acrochaetiales will be studied and features correlated with other characters to determine primitive and advanced conditions. These studies will contribute to understanding the evolutionary relationships among families and orders of red algae.